Cortical-Straiatal Connections: Second Somatosensory Cortex(SII)

Abstract Narrative This is a Minority Research Initiation (MRI) planning grant to study the physiological properties and patterns of those neurons that exert a strong influence on the motor control of the facial muscles. Pilot data will be gathered during the duration of the award. Findings from this study may contribute to our knowledge of Parkinson's disease. This project will provide support for a well-trained minority scientist to prepare a competitive proposal to submit to the MRI research initiation component.